Regional Resource Issue Infusion Project for Middle School Teachers (II)

This project involves 32 middle school science and social studies teachers from the lower midwest. Working under a team of scientists and science educators for a period of three collegiate semesters, the participants will focus on earth science and ecological principles and on the science-related societal issues associated with geological and ecological resources in the region. One of the strongest components of this project is the outcome related to the participants' understanding of science-related societal issues within their own geographical region. Field activities, supported by the local school systems, are an integral part of the scheduled activities. Teachers and administrators will be familiarized with the local and regional resources and will be trained in issue investigation and problem solving, thus aiding them in implementing similar instruction in their own classrooms. The project will be carried out in four phases, enabling teachers to participate in activities, carry out independent investigations, implement these activities in their classrooms and evaluate the impact of the project. Graduate credit will be given upon completion of the project.